Genetic Dissection of Systemic Acquired Resistance in Arabidopsis

9419301 Lamb Attempted infection by a non-pathogen or an avirulent form of a pathogen can result not only in localized hypersensitive resistance, but also in the development of systemic acquired resistance (SAR) in which resistance to normally virulent pathogens develops throughout the plant. Establishment of SAR is associated with increases in cell wall hydroxyproline levels and peroxidase activity, together with the system expression of a subset of defense genes, but the functional significance of these defenses in SAR has not been established. Induction of the systemic signals is correlated with localized hypersensitive necrosis, and salicylic acid is a component of the SAR mechanism although it does not appear to be the systemic signal. A system has been extablished for biological induction of SAR in Arabidopsis (A. thaliana) by pre-challenge inoculation with genetically well-defined bacterial pathogens. This system exhibits many of the features of well-characterized SAR in tobacco and cucumber, and a tractable mutant screen has been developed that in preliminary studies resulted in the isolation, from a population of 11,000 mutagenized plants, of 10 confirmed mutants that exhibit local hypersensitive resistance but fail to develop SAR. It is now proposed to exploit the tools available with Arabidopsis for genetic dissection of SAR with the following specific objectives: 1. Further physiological characterization of biologically induced SAR in Arabidopsis. 2. Analysis of hypersensitive resistance-defective mutants to define the role of localized hypersensitive necrosis in the biological induction of SAR. 3. Further develop the collection of SAR mutants from mutagenized seeds of Arabidospsis ecotype Col-O and T- DNA taggd lines of ecotype Wassilewskija. 4. Characterization of this developing collection of mutants with respect to dominance, complementation, and map position. 5. Use these mutants to delineate the signal pathway for biological induction of SAR by genetic and physiological analysis of the sequence of gene action. 6. Molecular cloning of SAR genes with an initial emphasis on key genes for which T-DNA tagged alleles have been identified.